U.S.-Korea Cooperative Research on Effects of Rotation on Density Stratified Flows: Basic Flow Problems in CylindricalGeometries

This proposal requests funds to permit Dr. Daniel T. Valentine, Department of Mechanical Engineering, Clarkson University, to pursue with Dr. Jae Min Hyun, Department of Mechanical Engineering, Korea Advanced Institute of Science and Technology (KAIST) for a period of 24 months, a program of cooperative research on the effects of rotation on density stratified flows: basic flow problems in cylindrical geometries. The collaborators will investigate the time-dependent motions of liquids confined within cylindrical tanks that are induced by imposed thermal gradients and rotational speed changes at the walls of these containers. The principal goal of this research is to further the understanding of the dynamics of rotating flows of density stratified fluids. The following three computational problems will be addressed, namely, predicting (1) the effect of the "bathtub" or drain vortex on the draining of density stratified fluid from a cylindrical tank, (2) the three-dimensional vortex interactions that aid in the spin-up of a stratified fluid in a rotating cylindrical container initially at rest, and (3) the phenomena associated with the mixing of a stratified fluid in a cylindrical container by a centrally located rotating disk. The PI will extend his 4th-order computational algorithm to handle flows with rotation and stratification. The Korean collaborator will conduct a series of experiments that will include the configurations of the three problems posed. He also will apply his computational method to some of the cases computed in the U.S. to establish more strongly the validity of the predictions. The problems to be addressed are of technological importance in thermal energy storage tanks, flow-through reservoirs, and mixing devices designed to mix miscible fluids of different densities. The collaborators have considerable experience in the field of this research. The solution to the problems addressed by this project would be beneficial to the United States and Korea. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Korean participation is supported by the Korea Science and Engineering Foundation (KOSEF).